Reflection High Energy Electron Spectroscopy during Epitaxial Growth

A fundamental investigation of reflection electron energy loss spectroscopy in conjunction with epitaxial growth will be conducted. In situ measurement of core loss ionization and electron energy loss fine structure will be performed during thin film growth by molecular beam epitaxy. These measurements will enable investigation of surface dynamical phenomena during growth, such as surface segregation and relaxation of local order in films at the monolayer level. Of particular interest are the relation etween cation-anion flux ration, surface composition and surface reconstruction for group III-V semiconductor surfaces, and relaxation of local order at group IV(e.g., Si, Ge, Sn) alloy surfaces. Development of a data-parallel ultrahigh vacuum spectrometer will enable increases in data acquisition speed by approximatel;y 2-3 orders of magnitude. %%% This research will investigate a new method for compositional and stuctural analysis of thin films during the actual growth process. Potential benefits include the ability to achieve atomic level control over thin film composition, and semiconductor materials with novel properties and performance for use in advanced electronic and photonic devices and integrated circuits.